Interference Effects on Conductors and Superconductors

Theoretical research will be conducted on the mesoscopic physics of interference effects in conductors and superconductors. Specific projects will focus on interference effects in disordered superconductors based on the assumption that superfluid density has a random sign near the superconductor-insulator transition; interference effects in hopping conductivity leading to a quantitative theory for magnetoresistance; interference and interaction effects in tunnelling density of states exploring the connection between Coulomb blockade and interaction corrections to the density of states in bulk metals; and, the interference mechanism for the magnetic-field dependence of the impurity hopping rate in disordered metals. %%% Theoretical research will be conducted on the mesoscopic properties of disordered metals, superconductors and insulators. This area of research in which microscopic quantum phenomena are manifested in the macroscopic world is of great fundamental importance and, at the same time, is of great interest to the microelectronics industry.